Travel: Student Support for the 2026 International Conference on Automated Planning and Scheduling (ICAPS 2026)

This award supports travel for undergraduate, master’s, and doctoral student researchers from US institutions to attend the 36th International Conference on Automated Planning and Scheduling (ICAPS) and to participate in the Doctoral Consortium or the LaunchPad Workshop held in conjunction with the conference. ICAPS is the premier international conference on automated planning and scheduling, a field that develops methods for intelligent decision making in dynamic environments and supports applications in transportation, logistics, robotics, remote sensing, and related areas. The 36th ICAPS will take place in Dublin, Ireland, from June 27 to July 2, 2026, and the Doctoral Consortium and LaunchPad Workshop will be held on the first day of the conference.

The Doctoral Consortium and the LaunchPad Workshop play important roles in strengthening the next generation of scientists and practitioners in AI and automated planning and scheduling. The Doctoral Consortium enables doctoral students to present their research, interact with peers, and receive in-depth feedback from senior researchers. The LaunchPad Workshop helps undergraduate and master’s students enter the field by connecting them with planning and scheduling research, potential advisors, and future research opportunities. Students will also benefit from the broader conference program, including technical sessions, workshops, tutorials, and other educational activities. Together, these experiences help students build research skills, develop professional connections, and engage with cutting-edge advances in the field of automated planning and scheduling.